Models for Classification and Memory

9317256 ESTES This project will be devoted to the continuing development of mathematical and computer models for human memory and classification performance. The objectives are twofold. One function of the models, analogous to that of the gene model in genetics, is to help us understand what goes on in the memory system when it is impaired by aging or brain damage or when it gives rise to super-normal or "expert" performance, and to provide an essential framework for relating experimental results on cognitive functioning to mechanisms revealed by research in neural science. The second role of the models is that of "learning machines" that can serve as components of intelligent systems for accomplishing complex tasks like speech recognition, language comprehension, medical diagnosis, and coping with the vast quantities of data returned from spacecraft. Estes has developed two types of models under his long-term NSF support, one based on symbol processing, as in traditional artificial intelligence, and one based on structures and processes suggested by work on neural networks. In this research, Estes will test and refine both models further in relation to several major outstanding problems: How is it possible to gain rapid access to the large amount of information stored in human long-term memory? How can people learn many difficult categorizations simultaneously with little interference, e. g., learning several languages or several computer operating systems? How do people make decisions among alternatives that differ in their constellations of associated values and uncertainties of outcomes? How do the hypothesized short- and long-term memory systems of the computational models relate to the neural systems of the hippocampus and frontal cortex that are currently being studied. ***